Mathematical Problems Arising in Aircraft Modeling

0072247
Shubov

The primary goal of this proposal is to develop the spectral, asymptotic,
and stability analysis for three increasingly more complete and
complicated models of an aircraft wing in a surrounding airflow. The first
two of these models (1-dimensional and 2-dimensional respectively) have
been developed in the Flight Systems Research Center (FSRC) at UCLA
in collaboration with NASA Dryden Flight Research Center, Edwards,
CA. The designing of the 3-dimensional model is in progress. Among the
wing models existing in the extensive modern literature on aeroelasticity,
the aforementioned ones are most physically complete. In November
1999, the 1-dimensional model was tested in a series of four flight
experiments at Edwards Airforce Base, CA. The experimental results are
in excellent agreement with the theoretical predictions of the model at
least for low - energy aeroelastic modes. Currently, the collaboration is
supported by NSF Grant DMS-9972748 (Interdisciplinary Grants in the
Mathematical Sciences). This grant provides the support for a one year
visit (Fall 1999 - Spring 2000) of the principal investigator to the Center in
order to study in depth the engineering and physical principles of aircraft
wing modeling and to continue work on the joint project with the
researchers of the Center. During recent years, the investigator's research
has been focused on two main directions: (a) spectral and asymptotic
analysis of non-self-adjoint operators in a Hilbert space, operators which
are the dynamics generators of hyperbolic equations and systems
containing damping terms and subject to dissipative boundary conditions;
(b) applications of the results of this analysis to the control of distributed
parameter systems governed by those equations and systems. The series of
results and methods, developed in this research, has now culminated in the
work on the aforementioned 1-dimensional model of a vibrating aircraft
wing. Substantial progress has been made: the PI was able to obtain first in
the literature explicit asymptotic formulas for the high-frequency
aeroelastic modes and mode shapes. The objectives of this project include:
(a) obtaining space-time domain representations for the solutions of the 1-
dimensional model; (b) obtaining spectral asymptotics and representations
for the solutions of most recent 2-dimensional model; (c) applying
asymptotic and spectral results to the flutter suppression problem; (d)
participating in the designing of a 3-dimensional model of a wing and
extending the above analysis to this model.

The present project can be considered as a theoretical part of the broad
wing modeling project conducted by the researchers at the aforementioned
Centers. The ultimate goal of the entire project is to give specific practical
recommendations to aircraft industry engineers working on flutter
suppression in aircraft wings and tails. Flutter is a dynamic instability
occurring in an aircraft in flight at a specific speed which is called a flutter
speed. Damage inflicted by flutter results in significant cost to the aircraft
industry. The objective of this project is to carry out a rigorous
mathematical analysis of the aircraft wing model and to apply the results
of this analysis to the problem of flutter control. It has been recognized in
the engineering community that the results of such an analysis can provide
new insights which are not available from experiments or from numerical
simulations. In addition to the above technical objectives of the project,
the principal investigator is planning to develop a new graduate program
on mathematical methods in aircraft engineering for both mathematics and
engineering students.